Constructive Quantum Field Theory

0070905
Dimock
The goal of this project is to study quantum field theory models
with full mathematical rigor. This is useful to clarify the
structure of quantum field theory, and to enhance its
predictive power. Quantum field theory is primarily a theory
of elementary particle physics, but it also has an important
role to play in classical statistical mechanics. Specific goals
are as follows.
(1.) A construction of quantum electrodynamics
on a three dimensional torus. This is a step toward control
of quantum electrodynamics and/or quantum chromodynamics in
four dimensions, both of central importance in physics.
(2.) The construction of a non-Gaussian fixed point for the
renormalization group for an N-component scalar field in three
dimensions. This would be progress toward understanding a wide
range of critical phenomena.
(3.) A study of the Higgs mechanism for non-Abelian gauge fields
on a lattice. The Higgs mechanism is an important feature of
theories of the weak interactions.